A Panchromatic Data Reduction and Analysis Facility

This award will be used to acquire computer hardware and general- purpose peripherals to be incorporated into a panchromatic data reduction and analysis facility to meet the needs of the ground- based astronomy programs at the Center for Astrophysics and Space Astronomy. By emphasizing the "panchromatic" needs of modern astronomical research, this facility should have the ability to reduce and analyze area-format data regardless of wavelength and, moreover, should have the ability to intercompare these data as driven by scientific objectives. Because this facility is being designed to meet the needs of both ground- and space- based observations, funding for this facility is split among NSF, NASA, and the University of Colorado. Currently, the data load has far outstripped the capabilities of the current system, based upon a micro-VAX II, so to be that a system with superior computational power and input/output implemented bus speed is now required. The system is based upon the recent purchase by the University of an Alliant FX/8 and allows an elegant solution to 2-D data reduction needs. Peripherals will be added to the Alliant to provide the computational power needed for major manipulations involving large format area detectors (e.g. bias subtraction and flat- fielding of CCD images and sorting, Fourier-transforming and "cleaning" of VLA images). A workstation is also needed to allow transfer of reduced data from the Alliant to CASA for image display, analysis and final output. Thus, this proposed facility neatly separates the CPU intensive tasks from the I/O intensive ones and provides the most efficient machines to deal with each.